A Search for Failed Supernovae and Other Observational Constraints on the Supernova Mechanism

The goal of this project is to better understand the final fates
of massive stars. At the end of their lives, all stars more than
roughly ten times the mass of our Sun build an iron core which
collapses from the size of the Earth to the size of a city once
its mass exceeds a critical limit. In many cases this results in an
luminous, supernova explosion, but there is increasing evidence
that this is not the only outcome. This work will (a) discover
or set useful constraints on the fraction of massive stars that
produce a black hole without a supernova explosion; (b) clarify
the boundary between the least luminous supernova explosions and the
variability of massive stars that does not lead a supernova explosion; and (c)
measure the properties of these stars just before their deaths,
including pioneering studies of their variability. The project
will advance our scientific understanding of these massive stars
while training the next generation of scientists.

The research steps for a better understanding of the fates of
massive stars include using unique, multifaceted observational and
theoretical approaches. The centerpiece is a project using the
twin 8.4m Large Binocular Telescope to monitor all the massive
evolved stars in 27 nearby star-forming galaxies. The primary
goals are to:
(1) Discover or set interesting constraining limits on the
fraction of core collapses that fail, producing a black
hole without a supernova explosion;
(2) Measure the properties of SN progenitors while pioneering
studies of their variability and binarity;
(3) Explore the boundary between the faintest SN and stellar
outbursts, in particular by better understanding the nature of
the SN "impostors" and the SN2008S class of dusty transients.
While doing so, the project will advance the training of students and
post-docs and broaden the public's understanding and interest in science,
aided by their fascination with stars and their complicated roads to
death.